Research Priorities in Dynamic Systems and Control/ Washington, D.C. October 10 -13, 1986

This conference identifies new research needs and opportunities in the field of dynamic systems and control. This workshop is a follow-up activity to four separate mini workshops. The goal is the review of the results of the mini workshops and the identification of cross-cutting and interdisciplinary issues. A report identifying research needs in the dynamic systems and control area will be generated.